Planning: HBCU-UP: OPEN: Development of blockchain-based supply chain simulation

The Historically Black Colleges and Universities - Undergraduate Program (HBCU-UP) provides support to strengthen STEM undergraduate education and research at HBCUs. To enhance its research capacity, Morgan State University will conduct planning activities to develop PI expertise in blockchain-based supply chain simulations and make improvements to the supply chain coordination mechanism. The research approach is based on mathematical programming in which costs are modeled and tested in a simulated environment. This planning project aligns with the goals of the HBCU-UP program in its efforts to bolster institutional capacity building for the purpose of enhancing STEM Undergraduate education and research endeavors.

The objective of this project is to develop a blockchain-based supply chain simulation environment. During the project, a blockchain will be designed, set up, and deployed. Afterwards, a set of blockchain smart contracts that simulate delivery processes in a blockchain-based supply chain environment will be developed. The created blockchain-based supply chain simulation environment will mimic processes within a supply chain and, therefore, can be used for research and educational purposes. In research, the simulation environment will be a tool that can be used to test different blockchain-based models and concepts in supply chain management and other disciplines. In the classroom, the blockchain-based supply chain simulation environment can be used to explain to students blockchain technology and its applications in supply chain management and beyond.